CIF: Small: Collaborative Research: Graphical Modeling of Multivariate Functional Data

Multivariate functional data, where continuous observations are sampled from multiple processes, are emerging in a wide range of scientific applications. A central problem in analyzing multivariate functional data is to understand the interdependency among the functions. This can be formulated as the problem of graphical modeling of multivariate functions. The majority of existing solutions, however, focus on random variables, and extension to random functions is far from trivial. This project is developing a class of novel statistical methods and associated theory for functional graphical modeling. This research is timely in that it responds to the growing demand for functional data analysis, and is expected to advance numerous biological and medical research areas, including the analyses of brain connectivity networks, gene regulatory networks, and protein-protein interaction networks.

This project is studying three sets of problems: (1) nonparametric functional graphical modeling, which relaxes the Gaussian distribution or the linear structural assumptions, and avoids the curse of dimensionality and works for large graphs; (2) functional directed acyclic graphical modeling, which combines directed graph and functional graph, and offers a tractable solution for inferring directional dependency among multivariate functions; and (3) conditional and dynamic functional graphical modeling, which models graph that varies continuously with one or multiple external variables such as time. At the heart of its development is linear-operator-based statistical learning, which provides a highly flexible and efficient platform to handle massive and complex functional data. The accompanying estimation algorithms and asymptotic theory also make useful additions to the toolbox of multiple fields, including functional data analysis, network and graphical modeling, and statistical machine learning.